Visual Beams for Enhanced Learning in Statics and Solid Mechanics

(59 Engineering Other)

In this project, we are developing hands-on and visualization tools for introductory engineering courses such as statics and solid mechanics and other engineering courses as a proof-of-concept. The project addresses the need for curriculum improvement in the areas of problem formulation and integration of hands-on force input with computer visualization tools for fundamental engineering courses. Incorporating the sense of touch with computer visualization tools aids students in problem formulation, problem solving and analysis skills. These tools connect the physical systems to visualization and solutions calculated from theory.

Specifically, the developed tools help students overcome difficulties in working with
forces, moments, displacements and stresses, such as: 1) determination of the reaction forces and moments caused by applied forces; 2) determination of the shear and bending moment distributions in beams; 3) visualization of the deformation of a structure under applied loads; 4) determination of the types of stresses resulting from axial, torsional and bending loads. The tools enhance critical thinking and problem solving skills of students by engaging them in the learning process through individual experimentation.